NSF Young Investigator: Computational Mechanics Workbench

9357773 Yip The object of this NYI Grant is to develop a category of intelligent computational tools for scientists and engineers. Given a high-level specification of a physical problem in terms of nonlinear partial differential equations, these tools will be able to automatically: (1) simplify that equations by asymptotic techniques, (2) prepare numerical simulation experiments for the simplified model, (3) monitor and control the experiments, (4) interpret the results in high-level terms, and (5) derive qualitative predictions form the model by approximate analytical methods. ***